2002 Polymer Physics Gordon Research Conference; Newport, RI; August 11-16, 2002

This award provides partial funding for the 2002 Polymers Physics Gordon Research Conference representing of the research in the field. The invited speakers are world leaders, and the tradition of the conference is that it s well attended by young scientists with potential to be the future leaders of polymer physics. The organizers great will engage graduate students, and young postdoctoral researchers in the discussions of the conference.

The conference will consist of nine sessions with a total of 22 oral presentations, and two poster sessions. Invited speakers have been selected on the basis of their relevant expertise while emphasizing a program with gender balance and participation of young investigators that show promise as future scientific leaders.